Workshop Gaming the Make: A New Form of Assessment for a New Science Classroom

The project conducts a one-day symposium to synthesize recommendations from past Maker Faire workshops and initiate new approaches to strategies and tools for documenting and assessing the range of learning and engagement that is born of designing, making and engineering activities as found in the Maker Faire movement. Following the symposium, a post-symposium review panel will be convened to review and critique the framework, using specified criteria. Staff members from the New York Hall of Science will then integrate the reviews into a revised framework document. The project has broader policy implications for larger assessment systems in informal learning environments such as the Mozilla Badges initiative.